Introducing Modern Instrumentation into a Group Learning, Project-Oriented General Chemistry Laboratory

As the second part of a 5-year plan to revitalize the chemistry program, the General Chemistry laboratory experience has been completely restructured. Three new projects implement the use of visible-ultraviolet absorption spectrophotometry (UV-Vis), atomic absorption spectrometry (AAS), and high-performance liquid chromatography (HPLC). For the UV-Vis, taking advantage of the speed of a diode-array instrument, students design a dye "pH-meter" by using a selected plant dye for spectrophotometrically determining pHs. The AAS project asks students to decide the changes in the aluminum concentrations in a rhubarb sauce, or similar food, after cooking in an aluminum container. Finally, the HPLC project has students isolate and purify lysozyme from egg white, tears, or nasal mucus. With the instrumental projects included, presentations are planned for the American Chemical Society (ACS) and Midwestern Association for Liberal Arts Colleges (MACTLAC) meetings. Publications of the redesign of the laboratory and the individual instrumental projects are planned for publication.